Thermal and Petrologic Effects of Uplift Related to Extensional Tectonics

Tectonic uplift on a regional scale can occur whenever the lithosphere is thinned through some combination of normal faulting and ductile stretching. Such processes appear to have played a major role in the development of the Cordilleran metamorphic core complexes of the western states. This project will continue investigation of thermal uplift experienced by two metamorphic terrains, the Pioneer Mountains of Central Idaho and the Albion-Raft River-Grouse Creek region of southern Idaho and northern Utah. The approach will involve theoretical modeling to predict pressure-temperature-time paths for metamorphic rocks which are brought to the Earth's surface through tectonic denudation, and field studies focused on reconstructing actual pressure-temperature-time paths using quantitative metamorphic petrology and Ar-Ar thermochronometry. Results are expected to considerably refine understanding of thermally-driven tectonic uplift related to continental extension.